Conference: ICM2026 Satellite Conference: Southeastern Lie Theory Workshop XVI

The award will support the five-day ICM satellite conference “Algebraic and Geometric Representation Theory,” which will take place at the University of Virginia in Charlottesville, VA from July 17-21, 2026. The conference will include fifteen plenary lectures covering topics in algebraic and geometric representation theory. These talks by leading researchers will provide potential directions for participating graduate students and junior researchers to enhance their research programs. Another key component of the workshop will be contributed talks that will provide opportunities for conference participants to present their own research. Ample time for informal discussion among participants will be allocated between talks and at the end of each conference day. The main lectures will be videotaped and made accessible via YouTube to the general mathematics community.

Representation theory of Lie algebras, algebraic groups, Lie superalgebras and related algebraic structures has become a central research area in mathematics, with numerous applications in many areas of mathematics and theoretical physics. This workshop will showcase some of the recent algebraic and geometric advances in Lie theory. Several lectures will entail the deep work of the theory of canonical bases for quantum groups developed by Lusztig and Kashiwara, with connections to a wide variety of applications using categorification in representation theory. New methods in derived categories involving perverse sheaves will be introduced as a way to understand modular representations of reductive algebraic groups. Other connections to geometric methods involve the use of monoidal triangular geometry to understand the representation theory of finite tensor categories. Categorical invariants that include Hochschild cohomology and support theories via cohomology rings will be a prevalent tool throughout the workshop. More information can be found on the conference website: https://math.virginia.edu/ims/selie_icm2026/.